Boundary-Layer Receptivity Measurements Using Acoustic Wave-Packet Forcing

Abstract
CTS-9908027
R. Radeztsky, Arizona State University

Boundary layer receptivity, and its contribution to determining the laminar-to-turbulent transition process, is one of the most important basic fluid mechanics issues within aerodynamics. The Radeztsky/Saric investigation will utilize the premier experimental facility that has been established at the Arizona State University for their investigation of the instabilities that are produced by the interaction of acoustic wave packets with a laminar boundary layer. The wave packets permit the ASU - developed "phase separation technique" to distinguish between the acoustic and the hydrodynamic fluctuations.

It is expected that significant guidance for analytical/theoretical work will derive from these experiments.